Particles, Currents and Convection: Maps of the Magnetosphere as Viewed from the Ionosphere

This project will utilize data obtained from Low Earth Orbiting (LEO) satellites, in particular the DMSP satellites, as well as electric field data obtained from the SuperDARN radars to infer a number of features of the magnetosphere. The goal is to create hemispheric views of plasma regimes, the location of convection reversals and field aligned current structures. By utilizing data obtained simultaneously from satellites and SuperDARN it will be possible to study these features in a boundary-oriented fashion that will clarify their interrelationship. Quantitative values of the average energy and precipitating energy flux will be given for each region for both electrons and ions. Quantitative maps will be generated for the regions and the new maps will separately catalog the open and closed portions of the Low Latitude Boundary Layer (LLBL). The maps will include the plasma boundaries, the nature of the precipitating fluxes, the field aligned currents and the convection reversal boundaries.